UIG Video Based Instruction in Emerging Areas of Electrical Engineering

The university and two industrial partners are developing a 2-year educational program on Artificial Intelligence, Expert Systems Applications, Computer-Aided Design, and Very Large Scale Integrated Circuits Design and Fabrication. Industrial experts present significant components of the two courses involved. The project also involves installation of a KU-band transmitter, a control room, and a studio classroom to support satellite distribution of the university courses to remote audiences. Satellite receivers at KU and C bands plus video display and distribution facilities are being installed currently at the university. The courses use the latest interactive TV and tutored video techniques, supplemented by personal contact between all students and the course lecturers. Detailed evaluation is to be undertaken to compare all methods employed with respect to educational efficiency and student and faculty reaction to their use.